Mother Goose Cares about Math and Science: An Integrated Course of Science and Mathematics for Child Care Providers

The Vermont Center for the Book is developing "Mother Goose Cares about Math and Science," an integrated curriculum of science process skills and standards-based mathematics concepts for preschool children. A college credit course will be developed for childcare providers based on this curriculum. The course increases science and math literacy and the ability to incorporate NCTM standards, and science process skills, into daily interactions with children. Participants are also provided with the tools to communicate the importance of these concepts to parents. The course will be delivered to 600 childcare workers in Vermont and inner-city Philadelphia over a three-year period. Recruitment will include providers in center-, home- and school-based settings in both urban and rural communities. Participants will be provided with books, Curriculum Guides, tools and manipulatives needed to implement the course pedagogy. Materials to be developed include a seven-segment training, which will be used to disseminate the project nationally. Participants will receive a comprehensive training package that can be used to train their peers.